Beam Manipulation and nonlinear beam dynamics studies

9876773
Lee
The proposal is intended to investigate beam dynamics problems relevant to the understanding of the nonlinear particle motion in storage rings. These proposed research topics are indispensable to nuclear physics research using high brightness particle beams. The proposed research is also important in training accelerator physics graduate and undergraduate students. In past few years, the IUCF Cooler Ring has become the world leading laboratory for nonlinear beam dynamics research. More importantly, results of the Cooler Ring beam dynamics experiments have been employed to understand phenomena such as chaos, strange and limiting cycle attractors, and bifurcation characteristics of attractors. Our experimental results have been used to improve Cooler beam quality, to provide design criterion for power supply ripple in high energy colliders, and to develope new methods for emittance preservation of high brightness beams. Some applications of high brightness beams are meson factories, spallation neutron sources, heavy ion fusion, biochemistry and bio-medical, material science, and defense research.